MRI: Acquisition of a Transmission Electron Microscope

An award is made to Loyola University Chicago (LUC) to purchase a Transmission Electron
Microscope (TEM) in support of research, teaching, and outreach. This equipment will be used
by LUC researchers as well as graduate and undergraduate students in STEM fields. Through
didactic courses and research mentorship, over 100 LUC undergraduate students will gain
valuable training on this machine annually. Two undergraduate courses at LUC will utilize the
TEM as will two courses at neighboring undergraduate institutions. The TEM will have the
greatest impact on high school students engaged in summer research at LUC. Each year, LUC
investigators host 40+ aspiring scientists from Chicago area high schools. This high school
research experience will include training and hands-on exploration using the TEM. Thus, the
TEM will promote student training both at LUC and beyond.

This TEM enhances research at all levels. It enables imaging, sizing, and elemental mapping of
samples for a diverse ensemble of scientific fields ranging from biology to materials chemistry to
environmental sustainability. Representative examples include imaging of bacteriophages, the
cellular structural stability of malaria parasites, microscopic structures of lizard scales, bacterial
biofilm formation, cartilage and bone formation in fish embryos, and peripheral nervous system
structure. Furthermore, this machine can examine the chemistry that occurs at the surface of
prototypical small molecule organic semiconductors as well as element-specific measurements
of metal accumulation in living tissue. Thus, the TEM instrument will stimulate the productivity of
the existing research projects as well as train the next generation of scientists.